Analysis of Grinding Mill Sound Levels

Recent results from this study indicate that noise measurements can reflect not only the product particle size distribution but also the character of the material being broken. Hence, noise parameters could provide valuable fundamental information relating to the differing mechanisms of breakage found in the numerous materials which are ground in ball and rod mills. A better understanding of these mechanisms will assist in the formulation of improved breakage models and result in increased efficiency of present-day grinding operations. To investigate the breakage mechanisms, work is performed on a variety of materials to link particle breakage with overall mill noise levels and with individual particle acoustic emission.